The Impact of Simulation Models on Group Decision Support Systems Outcomes

IRI-9122508 Lewis, Clayton; Zigura, Ilze and Reitsma, Rene University of Colorado, Boulder $69,412 - 12 mos. Model-based Group Decision Support: The Impact of Shared Simulation Models and Tailorable Information Viewing on Group Decision Making Outcomes and Processes This is the third year funding of a three-year continuing award. Simulation models can be useful decision aids for many kinds of problems, and have been incorporated into Decision Support Systems for single users. But many important problems require group decision making, and effective ways of making simulation models available to groups need to be developed. This research evaluates the usefulness of computer simulation models in group policy negotiations, using laboratory and real-world tasks in the domain of river basin management. It compares five different modes of model access during negotiations, ranging from no access at all to free access controlled by the group of negotiators as a whole. Since different negotiators in a group typically have interests in different aspects of a policy decision this research explores the usefulness of permitting negotiators to create tailored views of model results, so that they can quickly evaluate the impact of a policy alternative on their particular interests. Tailored views may exclude unimportant data and may compute and present useful transformations of raw model results. The results of the proposed studies should be of direct value in exploiting advances in computer simulation technology and user interface design in support of group policy negotiations.